Learning Mathematics and Physics through Applications in Engineering - Early Alert Initiative

9452727 Daley The Memphis State University seeks to initiate a four-week, commuter EAI, Young Scholars program in engineering science for a group of highly promising African American student entering grade 9. The program will provide 20 participants with research and career exploration experiences through classroom and laboratory activities, field trips, and interaction with various professionals in the science and engineering fields. A major goal of the program is to stimulate career interest in engineering science through the use of algebra, geometry, trigonometry, and aspects of physics to examine specific laboratory and field problems.